Second International Conference on the Learning Sciences to be held July 25-27, 1996 in Evanston, IL

9632970 Edelson The Second International Conference on the Learning Sciences (ICLS 96) is scheduled for July 17-24, 1996 on the campus of Northwestern University in Evanston, IL. The objective of this conference is to bring together an inter-disciplinary community of researchers and practitioners to focus on the issues of learning and instruction. The conference's theme "Learning for the Real World" emphasizes the conference's goal of creating a community that is capable of developing theories and designs that account for the complexity of learning and teaching in real world settings. The audience for this conference is researchers in the fields of education, psychology, and computer science and practitioners from formal education, informal education, and training. Anticipated topics at ICLS '96 include: Design. Design of learning and teaching environments, including innovative curricula, multimedia, artificial intelligence, and telecommunications technologies, and classroom activity structures for supporting learning and teaching. Cognition. Models of the structures and processes of learning and teaching by which organized knowledge, skills, and understanding are acquired. Social context. The social, organizational, and cultural dynamics of learning and teaching across the range of formal and informal settings. ***